ITR Large: MALACH: Multilingual Access to Large spoken ArChives

The project proposes to advance the state of the art in automatic
speech recognition by detecting emotional and highly accented speech
and differences based on age and gender, and then optimizing the
acoustic model for those conditions. It will apply long-term
adaptation techniques to improve robustness, and will implement
an innovative second-pass decoding technique to improve accuracy
by using side information such as thesaurus terms and
human-prepared summaries.

The techniques to be developed will dramatically improve the efficiency
of professional catalogers, leveraging automatic segmentation to
suggest topic boundaries in interviews, using domain-tuned
classification algorithms to recommend thesaurus terms, and
providing automated tools to support generation of event timelines.
Volunteers will help assign metadata and provide transcripts.
Efforts will be made to automate transferring capabilities developed
originally for English to other languages. Access to multilingual
materials will be done by combining knowledge-based and corpus-based
techniques to extend existing thesauri to new languages and by supporting
cross-language searching of manually prepared segment-level
summaries and automatic speech recognition transcripts.

Each component will be evaluated and user studies done to measure
the overall impact on support for cataloging, search and exploration.
This will produce significant impact, both through improved access
to our cultural heritage and through the application of the techniques
to other important problems.

The collection of spoken material used in this project will be the 116,000
hours held by the Survivors of the Shoah Visual History Foundation, a
set of already digitized video recordings of great historical importance.